Postdoctoral Research Fellowship in Microbial Biology for FY 2004

This action funds an NSF Postdoctoral Fellowship in Microbial biology for FY2004. The fellowship supports training and research on the basic biology of protozoan, microalgal, fungal, archaeal, bacterial and viral species that are not generally considered to be model organisms. Further, it provides opportunities for recent doctoral recipients to obtain additional training in microbial biology, to gain research experience under the sponsorship of established scientists, and to broaden their scientific horizons beyond the research experiences during the undergraduate and graduate training. These fellowships are further designed to assist new scientists to direct their research efforts across traditional disciplinary lines and to avail themselves of unique research resources, sites, and facilities, including foreign locations.

The research and training plan is entitled "Biogeography of symbiotic bacteria at Deep-sea Hydrothermal Vents." Models of gene flow are being tested in populations of chemoautotrophic endosymbionts of Riftia tubeworms at deep-sea hydrothermal vents. Both population genetic and phylogeographic approaches are being employed in the analyses of DNA sequence data. New insights into bacterial dispersal in this system as mediated by topology and physical parameters are likely to result.